Workshop on Learning in Communities; August 15-17, 2005; University Park, PA

This award supports a workshop that will extend discourse on learning in communities. The goal is to bring together a wide range of perspectives and approaches to learning in communities to articulate the state of the art and to define an agenda for research and technology infrastructures. The current discourse on community learning encompasses communities of practice, learning communities, community networks, communities of interest, learning organizations, learning-by-doing, cognitive apprenticeship, subjugated learning, collaborative/cooperative learning, situated cognition, design as inquiry, knowledge management, lifelong learning, informal learning, case-based learning, and learning cultures. Workshop papers will constitute a special joint issue of the Journal of Computer-Supported Cooperative Work and the Journal of Computer-Supported Collaborative Learning.